SBIR Phase I: Silicon Photonic Optical Gyroscope using Planar Waveguide Coil and Integrated Photonics Circuit

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is improving the safety and reliability of autonomous systems with affordable high-precision instruments. Due to high component cost and extensive manual assembly, improvements in high-precision inertial navigation equipment has traditionally been slow, with system prices actually increasing instead of decreasing as in most other high-technology products. An affordable yet highly accurate gyroscope will open a $10 B market opportunity in autonomous systems applications, and it will provide disruptive, more compact new technology into the $2 B existing high-performance inertial navigation market. Possible market applications include sensors for consumer electronics, automotive safety systems, industrial robots, and national security systems.

This Small Business Innovation Research (SBIR) Phase I project will develop a new 3-D Silicon Nitride bandgap waveguide to enable small, high-precision integrated optical gyroscopes. Traditionally, on-chip Silicon Nitride waveguides are short centimeter length structures with optical loss on the order of a 100 dB per meter making them unsuitable to fabricate long gyroscope waveguides. Gyroscope waveguides typically require a spiraled sensing waveguide greater than 40 meters long to generate the sufficient Sagnac Phase for performant operation. Additionally, there is a trade-off between tight pitch waveguides that fit more sensing area per die, and the errors generated from optical phase coupling between neighboring waveguide spiral tracks. This SBIR will demonstrate a novel 3-D bandgap structure and process methodology to densely pack an ultra-low loss waveguide that will enable an approximate 400x improvement in optical loss and a 4x improvement in waveguide density versus conventional Silicon Nitride waveguide approaches found in today’s standard CMOS process. The results of the Phase I is a key-enabling technology for small integrated optical gyroscopes as well as other photonic devices that require low loss on-chip optical waveguides.